IISWC 2011 Student Travel Grants

This project will support student to attend the IEEE International Symposium on Workload Characterization (IISWC) to be held in Austin, TX, Nov 6-8, 2011. IISWC is a long running and well recognized workshop dedicated to the crucial topic of workload characterization, and this funding provides students to be exposed to this important workshop on workload modeling and characterization.